Undergraduate Laboratory Equipment Enhancement

Through this project, the institution was able to acquire a gas chromatograph/mass spectrometer and laboratory instrumentation interfaces with computers. The utilization of the GC/MS begins in the sophomore organic course which has been converted to microscale. The GC/MS is used extensively in molecular weight determination for unknowns in organic qualitative analysis. Students in instrumental analysis use the instrumentation for analyzing prepared acetylacetone complexes. Students doing undergraduate research continue to use the GC/MS for such problems as rate comparison of nucleophilic displacements which are phase transfer catalyzed versus the same reaction conducted with ultrasound. The acquisition of the GC/MS and interfacing instrumentation has greatly enhanced the chemistry program at the institution. The institution contributed to the project in an amount equal to the NSF funds.